Zebrafish Development and Genetics Conference: April 24-28, 1996; Cold Spring Harbor, NY

9513303 Grodzicker This proposal is for partial support of a conference devoted to progress in the use of the zebrafish as a subject for studies in the development of the nervous system. The zebrafish has emerged in recent years as a model system with which to analyse the developement of the central nervous system at structural, biochemical, and genetic levels. The forum will bring together leading established scientists and young scientists to evaluate the current state of knowledge and explore future prospects.